Workshop on Optimal Performance of Civil Infrastructure Systems, to be held Boulder, CO, 1996

9522541 Frangopol The workshop will cover modern concepts and methods in assessment, maintenance and design of civil infrastructure systems and their role in the development of optimal methodologies for the intelligent renewal of these systems. Research needs will be identified and prioritized. The documents of this workshop will be widely distributed over the United States to ensure transfer of engineering knowledge in the field of optimal performance of civil infrastructure systems. This will enrich the bases of assessment and intelligent renewal of the nation's civil infrastructure systems.